Advances in Small Scale Chemistry: CHEMTREK II

The Chemistry Department is purchasing equipment for CHEMTREK II, a second generation, year-long, freshman chemistry majors program which combines small-scale chemistry with computer- interfaced experiments and simulations, a new type of small- scale quantitative spectrophotometric instrumentation, and video-enhanced problem-solving techniques. The major equipment items are microplate spectophotometric readers (for small-scale quantitative spectrophotometric measurements), computers with interfaces, software and, printers, and a microscope camera system for recording small-scale phenomena. This program brings together students with common goals to develop new and innovative experiments, maximizes faculty-beginning student interactions. The goal of the program is to motivate beginning chemistry majors and to integrate theory, practice, and applications of chemistry in the undergraduate curriculum.